RIA: Built-In Test Pattern Generation Methods

This research is on the design of test pattern generators for combinational circuits. Various schemes for LSFR/SR pseudorandom test pattern generators are being examined. The focus is on finding high quality ATPG algorithms that require minimal hardware overhead. Several families of not-necessarily primitive, characteristic polynomials are being investigated with the objective of guaranteeing that test patterns will be applied randomly to all outputs. In addition, various partial scan schemes that follow the structural approach are being studied.